2003 FASEB Summer Research Conference on Chromatin and Transcription to be held July 12-17, 2003 in Snowmass, Colorado

This award provides partial funding for the 2003 FASEB Summer Research Conference on Chromatin and Transcription to be held July 7 - 12 in Snowmass, Colorado. The conference's goals are to 1) introduce lesser known research areas to the established fields of chromatin and transcription and, in this way, promote cross-fertilization of research efforts, 2) promote the careers of young investigators, postdoctoral fellows, and students, and 3) strengthen the voice of underrepresented minorities, women, and persons with disabilities. The overarching theme of the meeting concerns the interplay between chromatin structure and gene expression, both at the level of the single gene and at the level of the whole genome, including studies of chromatin modification and remodeling, insulators, and imprinting. Total attendance will be ~200, of which ~60 will be invited to speak.